Managers of National Antarctic Programs

For the past three years the need to provide better coordination among operating agencies in the many countries with Antarctic programs has received increasing attention. Agencies from fourteen such countries agreed in Boulder, Colorado in June, 1987 to form an organization called, Managers of National Antarctic Programs (MNAP). During the XIVth Antarctic Treaty Consultative Meeting in October 1987, representatives met informally and agreed to associate the MNAP organization with the Scientific Committee on Antarctic Research (SCAR). The relationship with SCAR was established and the MNAP organization formally adopted at the XX SCAR meeting in Hobart, September 1987. The American Geophysical Union (AGU) embraces all scientific disciplines involved in Antarctic Research, with the exception of some of the biological sciences. The AGU has proposed that its administrative offices provide for the newly established MNAP group the full range of support services, including an Executive Director. The AGU's extensive administrative services and widespread, excellent reputation in the scientific community, both nationally and internationally, make it the appropriate provider of such services. Funding this award will cover the Executive Director, support staff and services, including communications, office equipment, supplies, computer services and bookkeeping. I recommend support at the requested level.